Cohomology, Finiteness Conditions and Classifying Spaces for Families

Professor Leary will continue research on geometric group theory,
geometric topology and L2-cohomology, both alone and in collaboration.
In particular, he will construct groups for which the classifying
space for proper actions has surprising finiteness properties. He
will also develop and study a functor that preserves homology but
replaces an arbitrary topological space by a space admitting a
non-positively curved metric. This work should have applications to
topology, algebraic K-theory and group theory. Thirdly, he will
contribute to the study of L2-cohomology, by computing this invariant
for a large class of topological spaces, including the complements of
hyperplane arrangements.

A group is the mathematician's abstraction of the notion
of symmetry: groups measure symmetry in the same way that
numbers measure quantity. Some of the most interesting
groups arise from geometry, such as the collection of
symmetries of a tiling of the plane. Professor Leary
aims to construct groups that share many of the properties
of groups coming from tilings, but that cannot arise from
any `tiling' of any space. In a different direction, he
hopes to show that some aspects of geometry can be modeled
(in a certain precise sense) within the theory of groups.
This should lead to new insights within both geometry and
group theory.